The Distribution of Science and Mathematics Education

This project addresses the NSF's concern about low levels of science and mathematics participation and achievement among minorities, the poor, women, and students not college bound. RAND will analyze data from the 1985 National Survey of Science and Mathematics Education a survey previously supported by NSF at the Research Triangle Institute, which covered a sample of 1200 elementary and secondary schools and 6000 mathematics and science teachers. This present project will be designed to improve understanding of: 1) how resources, teacher quality, curriculum, and instructional practices are distributed among various student groups, and 2) whether this distribution may shape the opportunities to learn of groups that typically exhibit low participation and achievement levels. Because distributional questions will be addressed at both the school and classroom levels, the study will provide clues as to whether learning opportunities of students in various groups relate to: 1) the particular school a student happens to attend; 2) how opportunities are provided to different students in the same school; 3) combined school and classroom factors. These analyses will provide the first detailed national picture of the conditions under which patterns of unequal outcomes have occurred and point to specific targets for policies and programs addressed at remedying participation and achievement discrepancies.